Mathematical Sciences: Research in Dynamical Systems

Four postdoctoral research mathematicians will study various aspects of dynamical systems under the direction of the principal investigator. Three of the investigators will study various aspects of circle dynamics. These include studies of rotation number, the renormalization operator for smooth maps with flat spots, hyperbolicity of the renormalization operator, and the Sullivan program for circle endomorphisms. The fourth investigator will study one parameter families of unimodal and multimodal maps of the interval. Uniqueness properties of kneading sequences will be investigated. Orbits of points which are carried around a circle with given asymptotic rotation have interested mathematicians working in dynamical systems for most of the century. In recent years, first Collette and Eckman, and then Feigenbaum made the study of renormalization famous with their discovery of the "Feigenbaum constant" for period-doubling bifurcations. This "constant of nature" has been observed in a wide variety of physical phenomena. These research mathematicians will study deep aspects of the renormalization operator applied to functions of the circle and the interval.